Kansas Research and Education Network (KANREN) Enhancement Funding Request

9420711 Niebaum This award adds sever higher education institutions to the KANREN state network: Community Colleges: Fort Scott Community College Hutchinson Community College Kansas City Kansas Community College Other Colleges and Universities: Central College Donnely College Friends University Hesston College Faculty and students at the new institutions join the existing KANREN institutions in benefitting from access to the resources of the Internet, including libraries and supercompuers. In addition, they are able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.